REG: High-Resolution Spectral-and Near-Field-Measurement System

9411713 Botez The Department of Electrical Engineering at the University of Wisconsin, Madison, will purchase high resolution spectral- and laser near-field measurement equipment, which will be dedicated to research. The equipment will be used for several research projects including in particular the development of high-power, single- frequency phase-locked diode-laser arrays. Phase-locked diode-laser arrays have demonstrated high diffraction- limited powers: 1-1.5W. However, the devices do not have a single-frequency output, which prevents their use in many applications. Furthermore, at the present time, their number of elements is limited to 20, which in turn limits the amount of coherent power. The proposed research consists of developing phase-locked antiguided arrays with distributed feedback as well as implementing novel concepts for creating 40-80-element single-spatial-mode arrays. The goals are: single-frequency, diffraction-limited-beam operation to 1W with linewidths 50kHz, and spatially coherent powers of 3W. The requested funds are for purchasing a high-resolution grating spectrometer with a CCD camera as well as a vibrating mirror for spectral near-field imaging of array modes. This will enable the study of the modal structure of novel devices as well as optimization for high-power single-mode operation. ***